Collaborative Research: Structural and Geochronologic Study of the Coast Mountains Orogen Near Portland Canal, SE Alaska and Coastal British Columbia

9303824 Gehrels The Coast Mts. Orogen of the North American Cordillera, comprises several important tectonic features, including one of the largest batholiths in the world, a major suture zone, regionally extensive upper amphibolite granulite facies rocks and a major thrust belt. This research will determine the detailed geochronology of the major structures and integrate the findings with interpreted plate motions. The results will provide tight constraints on timing and style of plate-margin processes, especially at the cessation of subduction and onset of orogen-parallel transform motion.